Equilibrium Models of Climate-Soil-Vegetation Interaction

The objective of this project is to study the degree to which the physical conditions of equilibrium in climate-soil-vegetation systems, as formulated in terms of their access to water, heat, and light, can represent the observed gobal distribution and limits of vegetation. The research will address formulation of analytical models of the equilibria of critical vegetation formations, in terms of the physical variables and parameters governing controlling water and energy fluxes. The resulting equilibria will be examined for stability and uniqueness, and will be evaluated using observations from the literature.